Research Experience for Undergraduates in Chemistry at Texas A&M University

Professor John L. Hogg and other members of the Chemistry Department of Texas A&M University are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1991-93, nine undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects include chromatography of chiral molecules, reactions of tellurium compounds, and the folding mechanism of proteins. The program will feature a lecture series and tours of local chemical industries. Students will give both oral and written reports of their summer research progress. Participants will be predominantly two-year college students and minorities.